Scholarships for Information Technology, Engineering Technology, and Mathematics Students at Suffolk County Community College

This comprehensive scholarship program is promoting the success of 30 Information Technology, Engineering & Technology, and Mathematics students (ITETM) each year. The students demonstrate academic potential and talent and are enrolled in a ITETM program leading to an Associate degree.

The ITETM Project has the following objectives and goals:
(1) To increase the number of educated, skilled employees in technical areas of local and national need;
(2) To improve educational opportunities for talented NSF-CSEMS students from special populations, such as low-income, disabled, educationally disadvantaged or underrepresented;
(3) To increase student retention rates for degree achievement and transfer; and
(4) To strengthen partnerships between the college, area high schools and colleges, and local high technology industries.
(5) To expand research experiences for students in ITETM disciplines by forming and strengthening partnerships with high tech industries on Long Island.

The ITETM Project is being evaluated in terms of:
(1) student retention, graduation and transfer (to four-year colleges) rates and/or attainment of employment in computer science, engineering, and other technology areas;
(2) success rates in passing specific industry certification exams; and
(3) satisfaction of local industry and communities with the results of the program.